Annual Conference for Developers of NSF-IMD K-12 Comprehensive Science and Mathematics Curricula

In each of the next three years a conference will be held for developers of comprehensive K-12 science, technology and mathematics curricula funded by the National Science Foundation, as well as for developers of modules currently funded. The goal of these conferences is to provide a forum for developers to discuss common issues of materials development, evaluation, adoption, student assessment and teacher professional development for reform-based curricula and to develop research questions about them. The conferences will allow participants to exchange information, interact with experts and to build on relationships developed in previous meetings. A conference report and evaluation will be published on the web, and each meeting will build upon the previous one.